Acquisition of A New Generation Connection Machine for Multidisciplinary Research and Training in High Performance Computing

9413988 Rebbi This infrastructure award is for the acquisition of a parallel computer for research in the following areas: 1. Computations for Condensed Matter and Materials Science a. Parallel Micromagnetic Simulations b. Short Range Molecular Dynamics Simulations c. Simulation of Electromagnetic Wave Propagation in Inhomogeneous Media d. Nonadiabatic Molecular Dynamics in Condensed Systems e. Glasses f. Algorithms for Classical Dynamics and Optimization 2. Computations for Structural Biology and Biotechnology a. Protein Structure and Rational Drug Design b. Human Genome Project and Protein Structure c. Computational Biology d. Parallel Processing and NMR Structure Refinement e. Maximum Entropy Reconstruction Applied to Multidimensional NMR Studies of Proteins f. Probing the Energy Landscape in Biomolecules 3. Remote Sensing, Global Change, and Earthquake Modelling a. Remote Sensing and Global Change b. Non-linear Earthquake Models 4. High Performance Computing a. High Performance Computing Software b. Research in Parallel Approximation of Hard Combinatorial Problems 5. Advanced Manufacturing a. Massively Parallel and Distributed Simulation of Discrete Event Systems: A Different Perspective 6. Computations for Particle Physics, Astrophysics and Plasma Physics a. Simulations of Classical and Quantum Fields b. N-Body Simulations with Long-Range Forces ***